Modernization of Electronic Communication Laboratory

To meet the growing demand of the communications industry, this institution has developed an emphasis on digital and fiber optic communication in the undergraduate curriculum of the electronics technology program. This project provides six substations for experiments in data and fiber optic communication, and telephone networking techniques. The major equipment acquired under this project include six sets of fiber optic measurement systems, six digital communication experiment boards, two computer-controlled telephone exchanges, and two Zenith, Z-248 personal computers. The availability of this equipment allows the electronics technology students to reinforce theoretical concepts with hands-on laboratory experience in digital and fiber optic communication, and telephone networking technology. This award is being matched by an equal sum from the grantee.